Pathways to the Baccalaureate Scholarship Program

This project provides a vibrant Pathways to the Baccalaureate Scholarship Program with a focus on increasing equity and access through our recruitment and retention efforts, the development of relationships with on- and off-campus constituents, and specified program goals. The program targets students in their junior and senior years in computer science, computer information systems, computer engineering technology, civil engineering technology, electrical engineering technology, mechanical engineering technology, industrial engineering technology, and applied mathematics. The primary program goals include the provision of an enriched learning environment for students, assisting students with exploration and preparation for entry into Pathways- targeted professions and graduate school, and the creation of structured career development and planning experiences that can be utilized by students throughout their entire careers.